Towards the Next Generation of Research on STEM Learning

The project proposes a conference to stimulate a national conversation on new STEM learning research paradigms that cut across boundaries and investigate multiple contexts and media, rather than historical approaches that have viewed learning within limited temporal, spatial and socio-cultural contexts.

The project will create a special peer-reviewed, international themed issue in the journal Science Education that reflects the meeting, convene the national conference of prominent learning sciences researchers, host a post-conference national web conference, follow-up on participants after one year, and host a series of national discussions around new paradigms in STEM at multiple national meetings.